UW-Eau Claire Excellence in Mathematics and Computer Science Scholarship

The departments of Mathematics and Computer Science at the University of Wisconsin-Eau Claire have developed a scholarship program called the Excellence in Mathematics and Computer Science (EMACS) program. The EMACS scholars will be UWEC mathematics and computer science students selected on the basis of financial need and academic potential. The project contains academic support in the form of faculty and peer mentoring, student/faculty research opportunities, capstone experiences and independent study opportunities. These students are also provided with solid career counseling that includes preparation for graduate school, service learning opportunities, internship opportunities and effective employment strategies such as resume writing and interviewing skills. This project also contains an excellent sustainability component.